Workshop on Aerospace Applications of Neurocontrol

The purpose of this workshop is to explore the state of current research in Neurocontrol, provide a forum for addressing future research directions, and coordinate research and development initiatives between the aerospace industry and academia. Topics of particular interest include: o On-line Learning o Self-Optimizing Systems and Parameter Identification o Control Space Exploration o Sensor Fusion and Signal Processing o Flight Control Applications o Manufacturing and Process Control Applications o Real-Time Hardware Implementations for above Applications The Workshop will be hosted by Washington University with the joint sponsorship of the National Science Foundation and McDonnell Douglas Corporation. Several aerospace companies and governmental agencies will be represented, as well as academic and corporate research laboratories.